CT-ISG: New Directions in Cryptographic Proof Systems

Cryptographic proof systems have played an instrumental role in
cryptography. The applications of cryptographic proof systems to an wide
array of problems such as electronic voting, database security, secure
electronic commerce, identity management, computing on secret data,
trusted computing, and networking are well know. Significant efficiency
barriers remain to the widespread use of general cryptographic proof
systems. We propose an ambitious focused research plan to overcome these
barriers, by developing a new methodology based on elliptic-curve groups
to dramatically increase the efficiency of cryptographic proof systems.
Our research plan has two main technical thrusts:

(1) We propose to introduce a new technical framework for constructing
non-interactive cryptographic proof systems (such as zero-knowledge
proofs), based on a direct commit-and-prove technique. Our framework
promises to greatly reduce proof sizes for cryptographic proofs. In the
most general setting, where we are given a boolean circuit C and wish to
prove that there exists some input x such that C(x) = 1, we seek proofs
that contain only O(|C|) group elements, where |C| denotes the size of the
circuit.

(2) The very act of interpreting the statement to be proven as a boolean
circuit itself often introduces a substantial overhead. We observe that
there has been considerable recent development of cryptographic schemes
based on bilinear groups. We propose to develop a set of techniques that
can be used to directly prove a variety of interesting statements about
essentially any cryptographic scheme based on bilinear groups.